SGER: An Integrated Study of Post-Flood Hydrology, Ecology, Politics and Policy Change: A Cross-National, Urban Perspective

0313984
Mohanty
Natural disasters such as floods, earthquakes, and hurricanes have impacts
far beyond the physical damage related to the actual event. The policy and
political impacts of natural disasters can be immediate, in the form of
federal disaster relief aid, or long-term, as in changes to long-standing
land use regulations. As a result of Tropical Storm Allison, Houston
suffered over $5 billion in damages, the loss of 22 lives and an estimated
73,000 homes. Recently, as a result of major flooding in Central Europe, the
German city of Dresden, and Prague, in the Czech Republic, experienced
similar disasters, the impacts of which are being estimated in the billions
of dollars. The similarity of these events provides a unique research
opportunity to contribute a broader understanding of the role of focusing
events on policy development, politics, and the general health and well
being of society. From a research perspective, we are interested in
understanding how focusing events, such as urban flooding, develop and
propagate across scales and influence decision processes in regard to
physical infrastructure and subsequent changes in policy. The objectives of
this SGER proposal are two-fold. First, we propose to initiate contact with
social and physical scientists in Europe and develop a collaborative
research team capable of focusing on the broad topic of public policy change
as a result of urban flooding. Researchers will expand upon personal
contacts in their respective areas and seek out additional collaborators in
substantive research areas within the physical and social sciences, as well
as geographical areas impacted by both recurring and nonrecurring urban
flooding events. In so doing, we will also identify sources of relevant and
reliable data, and to the extent possible, collect baseline hydrologic,
ecologic, and social field data on the impact of the recent flooding
incidents such as those in Germany, the Czech Republic, and Houston. The end
point of this phase of the SGER project will be a well-defined, and
committed interdisciplinary and cross-national research team. The second
objective is to integrate the disciplines of political science/public
administration, hydrology and the geosciences into a strategically sound
large scale, multi-year cross-national, collaborative, interdisciplinary
research proposal for submission to either multiple NSF programs, or one
major cross-cutting NSF initiative. The context for this proposal is
cross-national. The integration of the physical and social sciences also
reflects the current interest from NSF in approaching complex social and
natural problems through multiple perspectives.